Efficiency of Photosystem II and Carbon Assimilation in C4 Plants

9317756 Edwards Photosynthesis is composed of two general processes: one, the conversion of solar energy into high energy intermediates, and the other, the use of those high energy intermediates to drive thermodynamically unfavorable reactions, which results in the conversion of inorganic matter to organic matter. The efficiency of the various processes can be considered at three different levels: the absorption of solar energy, the utilization of solar energy in photochemistry, and the utilization of photochemically derived energy for carbon assimilation. Absorption of solar energy by chlorophyll results in the formation of a strong reductant and the oxidation of water at photosystem II. From analyses of chlorophyll fluorescence using modulated light, the efficiency of utilization of solar energy by photosystem II can be evaluated with respect to carbon fixation and photosynthetic evolution of oxygen. In this project, analyses will be made at the whole plant and cellular level to determine sinks for photosystem II activity and the efficiency of utilization of reductive power in carbon assimilation in C4 plant species, which have a carbon dioxide concentrating mechanism. ***